Comparison of Water Properties and Flows in the U.S. and Russian Channels of the Bering Strait - 2005 to 2006

This project will continue the collection of a key dataset for understanding and modeling the Arctic Ocean. There have been continuous measurements of the through flow of the Bering Strait since 1990 but only at three sites in the center and on US side of the Strait. Data have been used to model the behavior of the whole channel with the central mooring acting as a surrogate for the variability of the Russian side component. However, there is a new agreement between NOAA and Russian counterparts to measure the through flow on the Russia side of the Bering Strait and make those data available. Therefore this year offers a unique opportunity to finally calibrate the model with data from the Russia side of the Strait while concurrently measuring with the long term array.